U. S. Participation at the High Performance Computing Workshop in Parallel Finite Element Analysis; September 1-5 2003; Manchester University, UK

CMS-O3378 1 1
PI:
Institution: Title:
BorisJeremic
University of California at Davis
"U.S. Participation at the High Perfonnance Computing Workshop in Parallel Finite Element Analysis 1st-5th September 2003, Manchester University"
Abstract:
This award will support a group of U.S. researchers to participate in the Workshop on High Performance Computing in Finite Element Analysis at the University of Manchester (UM), England. The workshop will be held from 1st to 5th September 2003, at the Computer Services for Academic Research (CSAR) center of the UM.
The workshop participants will represent researchers from Europe, Japan and the U.S. The main objectives of the workshop for the U.S. participants are:
(a) The development of collaborations amongst U.S. participants and the participants from Europe and Japan; and,
(b) The development of research needs in the area of high performance, parallel computing (HPPC) in the general area of Civil Engineering.
A group of approximately 24 participants will represent experienced researchers as well as learners and graduate students working in the area ofHPPC. The learners represent researchers who have done some work or have a great need for HPPC.
The Intellectual Merit of the proposed participation at the workshop is in allowing the advancement of knowledge and understanding on cun-ent state of the art and in defining the future research needs in the area of high perfonnance, parallel computing within civil engIneenng.
The Broader Impact of the proposed participation at the and leaming among a diverse group of participants.
is promoting teaching
workshop